CEDAR: MISETA: Evolution of Sub-km Irregularities and Their Drifts at Ancon, Peru

The goal of the Multi-Instrumented Studies of Equatorial Thermosphere Aeronomy (MISETA) program is to improve understanding of equatorial thermosphere aeronomy through studies that combine continuous measurements from a variety of automatically operating instruments. The PIs propose to augment the ground-based diagnostics at the CEDAR equatorial observatory in Peru with two automatic instruments that would measure the zonal drift of kilometer scale irregularities and all sky airglow surface brightness. In addition, the PIs propose an upgrade for the Fabry Perot interferometer to modernize the data acquisition capability for automatic measurements of the F-region neutral wind field. This particular project will upgrade the spaced antenna drift measuring capability in Ancon, Peru with an automatic data acquisition system.